Development of: High Resolution, High Sensitivity Scanning Josephson Junction Microscope

This proposal is for the development of a high resolution, high sensitivity
magnetic field imaging microscope. This instrument will allow for the
measurement of minute magnetic fields (10-5 G) generated by currents in
mesoscopic devices, the magnetic properties of quantum structures and the
spin states of electrons inside devices. The instrument will be the first
scanning Josephson junction microscope (SJM). It will have six orders of
magnitude higher field sensitivity than conventional magnetic force
microscopy and an order of magnitude better spatial resolution than
scanning SQUID microscopy.

In order to build this tool, the expertise of several groups at MIT must be
brought together. The Josephson junction (JJ) that forms the critical
sensing element must be integrated on an atomic force microscope tip in
order to be in sufficient proximity to the sample. This process will
require the development of a micromechanical silicon submount onto which
the JJ will be processed. Once the sensing element has been fabricated it
must be integrated into a larger instrument composed of cryogenically
cooled piezo-stages and circuits to monitor and amplify the signals from
the JJ. When completed, the combination of high field sensitivity and
high spatial resolution will allow for the study of vortex states in
superconductors, charge transport in circuits and biological systems, the
magnetic state of mesoscopic magnets, and the spin state of electrons in
devices.

Finally, the development of a new scanning probe microscope offers exciting
opportunities for interdisciplinary education. Already, students working
on device processing, circuit design, mesoscopic device physics and
materials science have all participated in the development of the core
technologies.